Mathematical Sciences: Support for the 45th Annual Gordon Research Conference on Statistics in Chemistry and Chemical Engineering; August 25-30, 1996; Oxford, England

9632955 Ungar The Gordon Research Conference on Statistics in Chemistry and Chemical Engineering has met annually since 1951. It provides an important and highly stimulating opportunity for the exchange of new ideas among researchers and workers in statistics, chemistry and chemical engineering. In order to further the exchange of ideas, the 1996 Conference will, for the first time, be held outside the US, in Oxford (UK). This will bring US scientists in contact with the leading scientists in the fields of statistics, chemistry and chemical engineering in Europe. The 1996 Conference will work along two lines. On the one hand, outstanding statisticians present novel and up-to-date topics relevant for chemists and chemical engineers and on the other hand, outstanding chemists and chemical engineers present real-life problems and proposed solutions. This approach maximizes the interaction between the different groups: chemists and chemical engineers learn new statistical methods and statisticians hear about complex real-life problems. %%% The Gordol Research Conference on Statistics in Chemistry and Chemical Engineering lies on the interface between statistics, chemistry and chemical engineering. Hence, the conference attracts a broad spectrum of participants. The resulting cross-fertilization of ideas from different areas of science and engineering significantly benefits all participants. Research statisticians are exposed to real problems in chemistry and chemical engineering; applied chemists and statisticians learn first hand about new statistical research which they can use in their everyday work; and research chemists and chemical engineers can discuss their statistical ideas with eminent statisticians. Statistical methodology, as covered in this conference, provides important quantitative tools in numerous fields of research, including meeting national goals for improved competitiveness in the chemical industries via enhanced product quality and productivity, and recognition and avoidance of environmental hazards. This conference will allow open presentation and discussion of recent research on the frontiers of statistics and its relevance for all areas of chemistry and chemical engineering. ***